Planning Grant for a Cybersecurity Regional Center: Washington Area Training to Counter Hacking/CyberWATCH/A Community College-Led Consortium

A consortium of six Washington DC metropolitan community colleges (Prince George's
Community College, Northern Virginia Community College, Howard Community College, Montgomery College, Frederick Community College, and Lord Fairfax Community College) and the Virginia Community College System Institute for Excellence for Information Technology, joined by three universities (Johns Hopkins University, G W Solutions - a George Washington University Enterprise, and University of Maryland College Park), Eleanor Roosevelt High School, CompTIA, CISCO, and a number of private sector and government enterprises are collaborating in developing a Strategic Plan for a NSF-ATE Washington area regional cybersecurity center. The goals of the planning period fall into four broad areas: 1) to gather information on special regional needs and existing education and training; 2) to share curriculum and course information about existing courses and seek information on cybersecurity courses and curricula at other community colleges; 3) to begin professional development activities; and 4) to begin the process of creating seamless pathways from high schools, through the community colleges, to four-year institutions.